Building a Resource Network to Serve Colorado's Front Range Communities

The Colorado Alliance for Science is a consortium of schools, school districts, businesses, industries, institutions of higher education, professional societies, research laboratories, state agencies, and community groups working collaboratively to improve precollege science education in Colorado. The Colorado Alliance is seeking to establish a resource-sharing network in science education aimed toward initiation and maintenance of high-quality science programs in schools. The approach used will involve: -the school principal working with teachers in a school to develop a high-quality science program in accordance with assessed needs of that school. -sponsors from industry and from higher education working with teams and helping them locate resources and solve problems. The project will have five phases: organizations; recruitment and participant selection; planning and exploration; information-gathering and resource development; leadership. New sets of school teams will proceed through these phases starting at the beginning of each year. The project will be started in four schools; six new schools will start the phases in Year II; 11 new schools will join the network and start the phases in Year III. By the end of three "cycles," each of the 19 schools in the Weld County created a high-quality science program uniquely suited to its needs. Teams that start the project in the first cycle will be asked to help guide new teams that enter during cycle teams.